Acquisition of a Multi-Collector Inductively Coupled Plasma Mass Spectrometer for Geochemical and Cosmochemical Investigations

9977095
Walker
This Major Research Instrumentation award to University of Maryland at College Park provides a multi-collector inductively coupled plasma-mass spectrometer for geochemical and cosmochemical research. It will be used for a wide variety of research projects involving elemental and isotopic composition, and will be integrated into a facility, the Isotope Geophysical Laboratory, which is heavily used by UMD and outside researchers. The project is supported by the Division of Ocean Sciences at NSF. University of Maryland will provide cost-share support for more than 40% of total project costs.
***